A Visualization Study of Network Growth and Traffic from 1986 to 1992

The NSFNET infrastructure has expanded at an exponential rate and has precipitated the need to evaluate trends that impact future network development. High performance computing and advanced 3- dimensional graphics environment coupled with new media technologies provides an expanded visual domain to represent and study complex network topology and data. This project will organize, aggregate, reduce, and investigate large network databases while considering a design criteria that can be applied to a more diverse set of information flow problems. This study is a major step in the development, visualization, and investigation of network data archives and can reveal communication trends in the nsfnet and its components. The archiving and distribution of this investigation will provide a valuable national resource and has the potential of becoming a general purpose visualization tool for network analysis.